Effect of Elastic Anisotropy on the Physical Properties of Mercurous Halide Crystals

This is a ROW (Research Opportunities for Women) award. Thermal conductivity studies are used to investigate imperfections. Their application to this highly anisotropic material, mercurous halide crystals, has the potential for giving detailed information about 3-phonon zone boundary interactions and their frequency dependence, and could be used to test more specific theories than the ones currently used and sufficient for more isotropic solids.